Student Travel Support for the 2003 Internet Measurement Conference

IMC is the primary venue for presenting new research results on collecting and analyzing mea-surements
of the Internet. Last year's workshop, held in Marseille, France, had more than 100
attendees, with a waiting list of additional people wishing to participate.
This proposal requests funding to aid graduate students enrolled in institutions in the United
States in attending this premiere conference. Attending conferences such as IMC is of paramount
importance for graduate students pursuing research in the field. Authors have the opportunity
to present their work and all attendees have a chance to interact with many others performing
leading-edge research in the field.
Intellectual Merit: This proposal will serve to widen the audience attending the Internet
Measurement Conference, raising the level of interaction and the potential for new collaboration,
new investigations, and higher quality research.
Broader Impact: This proposal, by enabling students to attend who might not otherwise
be able, will increase the dissemination of the conference's research results to a larger and more
diverse audience. By giving preference in grant awards to women and minority students, we hope
to widen the participation among these underrepresented groups. Furthermore, by advertising to a
wide range of colleges and universities, participants from a more diverse set of institutions should
be able to attend and benefit from the conference.